NSFNET Connectivity

ABSTRACT "NSFNET Connectivity" Muskegon Community College PI: David Seith NCR-9502991 Muskegon Community College requests support from NSF for connection of their campus networks to Michnet and the Internet. Michnet is the midlevel network located in the state of Michigan that will provide operations and network information services. It will provide Muskegon Community College a 56KB connection to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States The College needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of the Muskegon Community College as well as K-12 school age children who are offered a hands-on minicomputer camps using the institution resources.